The Prevention of Bit Balling by Electro-Osmosis II

The objective of this research is to carry further the work that has been previously accomplished in reducing bit balling, and to double the rate of penetration while drilling in shales by applying a negative potential of a few volts to the bit which causes the development of a lubricating water film at the bit-shale interface. Experiments so far have been carried out with roller-cone bits at small scale. In this work it will be determined if similar good results can be obtained at larger scale, with drag bits as well as with roller-cone bits, and in the presence of clay-containing drilling muds. The project will be supported by matching funds from industry.